I/UCRC: Collaborative Research: Center for Advanced Technologies for Minimally Invasive Diagnosis and Treatment

This action will provide funds for the University of Cincinnati and the University of Minnesota to hold planning meetings for a proposed Industry/University Cooperative Research Center for Advanced Technologies for Minimally Invasive Diagnosis and Treatment. The center will focus on the next generation devices for minimally 9invasive diagnostic and treatment procedures, with research themes involving endovascular devices, endoscopes, and laparoscopic devices.